History of the Facsimile Machine, 1843-1995

9320001 Coopersmith From overthrowing governments to ordering food and following football, the fax machine provides easy, instant written communication worldwide without the alienation of the computer. Although most people assume that faxing is a spontaneous spinoff of the electronic and computer revolutions of the 1980's, in reality, fax technology has existed for 150 years. Major companies in the US, Britain, and France had the opportunity to promote fax technology. Yet the social needs in Japan, which has an "alphabet" that is not easily accommodated to the keyboard, led to its commercial success in the past twenty years. Dr. Coopersmith is examining why it took so long for people to develop and utilize a machine that has revolutionized the way we communicate. The fax machine appears to be a free-standing device, but it is intricately embedded in a system of telephone and computer networks, standards, business and social mores, and legal and economic structures. Studying the fax machine provides a gateway into understanding the construction and evolution of this system of communications. Dr. Coopersmith is using a comparative international approach to capture the evolution of fax technology. His main themes are innovation and diffusion, failure and the development of niche markets, the role of large organizations in shaping technical evolution and personal choice, and changes in communication. The recent widespread use of fax machines resulted from a convergence of technical, economic and social factors. To understand this convergence and the failure of prior efforts, comparisons among the United States, Great Britain and Japan will illuminate how different social and economic systems shaped the debates and development of fax technology. By analyzing how faxing has changed the way people communicate and work, this research will deepen our understanding of the evolving shape of telecommunications on the "information revolution." For decades predi ctions about the uses and importance of fax machines outpaced the reality, but when widespread acceptance came in the mid-1980's, the plethora of applications and further innovation surprised everyone, including proponents of the "electronic office of the future." Dr. Coopersmith's study is not a narrow history of a machine, but an exploration of how technologies, economics, politics, and societal values shaped the evolution of the fax machine and how fax technology influenced societies in which it is embedded. This research will contribute to the growing literature on innovation and further the study of the information revolution. ***